Dynamics of Cratonals Lithosphere

9902079
Sleep

The base of the lithosphere, the mechanically strong layer of tectonic plates, is typically 200-250 km deep beneath the older regions of continents. Data from rocks entrained in volcanic lavas indicate that this thickness has been stable for over 2 billion years in some locations. The PI will conduct a theoretical investigation the physics of why the lithosphere is this thick and has remained so over time. A supply of heat from below is needed to offset the heat lost upward by conduction to the surface. The model will consider two linked processes, which act to maintain this thickness: (1) small-scale free convection at the base of the lithosphere and (2) the transfer heat by stirring caused by the horizontal movement of overlying tectonic plates. Ponding of hot buoyant mantle plume material at the base of the lithosphere is a process that also supplies heat, and will be investigated in the model. The PI's model will calculate the evolution of the geotherm with time and determine whether stable equilibrium lithospheric thicknesses exist. Model results will be compared with observations.